Mathematical Sciences Computing Research Environments

The Department of Mathematics at the University of Pennsylvania will purchase computer equipment which will be dedicated to support research in the Mathematical Sciences. The equipment will be used for several research projects, including in particular that of Jim Lipton on automated deduction and realizability, Eugene Lerman on some problems in symplectic geometry, that of various junior faculty on projects in number theory, Lie algebras, combinatorics, differential geometry, and partial differential equations, and that of various graduate students on research projects on similar topics.